XPS: DSD: A2MA - Algorithms and Architectures for Multiresolution Applications

The goal of this research project is to devise novel methodologies and
devices for problems in computational science and engineering that
require high-intensity of arithmetic operations (also known as
Floating-point Operations Per Second, or ``FLOPS''). Among the many
hurdles faced in research and development of such compute-intensive
technologies is achieving energy-efficient utilization of the
available computing resources. Similar to the miles/gallon metric used
in automotive design, one is interested in a metric that can be used
in the design of new computing technologies: optimizing
FLOPS/watt. This research will be on designing novel algorithms and
architectures that optimize this metric. These algorithms and
architectures will be customized to a particular class of scientific
computing problems: tree-based finite element methods and N-body
problems.

It is possible to devise algorithms that parallelize well and are
energy efficient (i.e., produce high ``percentage-of-peak''
measurements). Often, however, such algorithms sacrifice work
optimality. It is much more difficult to design algorithms that do so
while achieving both work optimality and energy efficiency. This
on-node utilization wall---a chronic problem since the early
nineties---not only remains unresolved but has become more acute with
the emergence of deeper memory hierarchies and manycore and
heterogeneous architectures. At the same time, there is a large
untapped potential by not only adapting algorithms to architectural
changes, but instead driving architecture design from algorithm
requirements. This research will identify the design space for
tree-based algorithms (under the constraints of work-optimality and
maximum concurrency), evaluate performance of state-of-the-art codes,
and explore custom algorithm/hardware platforms. A number of broader
impacts are anticipated from this project. The target methodologies
find applications in earth sciences, engineering, cosmology, biology,
and data analysis. Along with the research activities, an educational
and dissemination program will be designed to communicate the results
of this work to both students and researchers, as well as a more
general audience of computational and application scientists.